The Continental Component Added to the Sedimentary Assemblages in the Canadian Cordillera: Nd Isotopic and other Geochemical Studies of Miogeoclinal Sequences

9315625 Patchett This project will measure Nd isotopes, REE and other trace elements in sandstone from the miogeocline of the Canadian Rocky Mountains in order to quantify the amount of continental material supplied during the lifetime of the Canadian Cordillera. Detrital zircon data will also be used to determine the relative amounts of far-traveled versus near-travelled detritus. The results will give a useful baseline for future provenance studies in the region. Results will also have implications for the existence of a large, 340 Ma terrane in the region and the movement of individual terranes within the orogen. These findings will have broad application to the study of tectonic terranes in other orogenic belts.